Establishment of an Ocean Bottom Seismic Instrumentation Pool in Woods Hole for the Marine Geosciences Community

This project provides for the participation of Woods Hole oceanographic Institution as part of the national Ocean-Bottom Instrument Pool. This Pool will provide ocean-bottom seismometers and ocean-bottom hydrophones to the academic community.